CSEDI Collaborative Research: Geochemical Structure and Dynamics of the Mantle Below the East African Rift System

The East African Rift System (EARS) is the only place on the planet
where the geochemical and isotopic compositions of continental mafic
lavas spanning 40 million years of volcanism can be studied. This
geochemical information must be used in conjunction with modern
geophysical and seismic information to address fundamental geodynamic
questions about the relationship between features of the deep Earth
and those at the surface. We focus on the evolution of upper mantle
temperature and composition by using numerical models of limited
mantle depth extent. Geological and geochemical observations in the
EARS provide strong constraints on the timing and location of melt
formation in the mantle. The dynamical modeling provides the ability
to predict the formation of melt in a self-consistent manner and make
quantitative estimates of the temperature, depth and rate of melting.
We will also pursue a comprehensive geochemical study of select
MgO-rich EARS basalts. New geochemical and isotopic (Sr-Nd-Pb-Hf-He)
data, coupled with existing data from the literature, will be used to
define the distribution of chemically distinct reservoirs that
sustain EARS magmatism. Trace element and isotope geochemical data
enable refinement of the compositional structure of the upper mantle
and will help constrain reasonable dynamical models. Our main
hypothesis is that one or more plumes bring hot material from the
Earths interior to melt below the EARS lithosphere, since we find it
difficult to understand how long-lived and voluminous volcanism can
be generated without such deep transport. A sensitivity study will
allow us to estimate whether and how non-plume models can predict the
timing and location of melt generation observed in the EARS. For
plume models, we will assess a variety of dynamical scenarios by
incorporating tracer techniques to test whether the observed
distribution of geochemical signatures and volumes of magmatic
products along the EARS can be satisfied with a single
compositionally heterogeneous plume. The resulting dynamical models
will enhance our understanding of the origin of the EARS, the African
superswell and eventually the African superplume. The collaboration
between geochemists with mutually supporting areas of expertise
(Furman trace element geochemistry, Bryce lithophile radiogenic
isotope geochemistry, Graham helium isotope geochemistry) and a
geophysicist / numerical modeler (van Keken) will provide a
much-needed interaction between observational and theoretical
efforts. The results of the work will be incorporated into
residential and electronic delivery courses at the participating
universities, including several Historically Black Colleges and
Universities. We will support graduate students at Penn State,
Michigan and New Hampshire, introducing this next generation of
scientists to interdisciplinary research and collaboration.